Research on a New Process to Fractionate Polymers

Supercritical fluid solvents which exhibit pressure-dependent dissolving power will be investigated for the fractionation of refractory polymers whose performance characteristics can be enhanced markedly if the molecular weight ranges can be narrowed. In the Phase I research, functionally-terminated polysiloxanes, polysilanes, and functionally-terminated perfluoroalkylpolyether polymers used as high performance surfactants, photo-resists, and liquid crystal precursors and considerably lower polydispersities were achieved by supercritical fluid fractionation. Additional polymers of interest will be identified in phase II and a continuous fractionation process for these polymers will be developed. For polymers of particular interest, distribution coefficients of various polymer fractions between the feed solvent and the supercritical extraction fluid also will be measured. These coefficients will be useful for the design of future commercial plymer fractionation processes.